Mathematical Sciences: NSF/CBMS Regional Conference in the Mathematical Science - Hamiltonian Graphs; May 26-30, 1992

The study of cycles in graphs has long been a central theme in graph theory and combinatorics research. A problem that traces its roots to the 1850's is that of determining when a graph G contains a cycle which traverses all the vertices of G exactly once. Named after William Hamilton, those cycles are better known as Hamiltonian cycles. Not only is this a structurally interesting problem, but also Hamiltonian cycles, and cycles in networks in general, have important applications in scheduling, sorting, and even facility design. This project will support an NSF-CBMS Regional Research Conference in the Mathematical Sciences on Hamiltonian Graphs to be held May 26-30, 1992 at the University of Louisville. Professor Roland Haggkvist of the University of Umea (Sweden) will be the principal lecturer. To stimulate interest and activity in mathematical research, the National Science Foundation each year supports a number of NSF-CBMS Regional Research Conferences in the Mathematical Sciences. Each five-day conference features a distinguished lecturer who delivers ten lectures on a topic of important current research in one sharply focused area of the mathematical sciences. The lecturer subsequently prepares an expository monograph based upon these lectures, which is normally published by the American Mathematical Society or the Society for Industrial and Applied Mathematics, or jointly by the American Statistical Association and the Institute of Mathematical Statistics. Certain features differentiate these conferences from typical research conferences. These are: (1) Focus on a single important and timely area of research by a leading practitioner, (2) Continued effect and local stimulation through regional emphasis, (3) Panel review for quality, breadth, and timeliness, and (4) Published monographs for a wider audience.